Acquisition and Enhancement of Instrumentation for Vibrational Spectroscopic Studies

This award from the Academic Research Infrastructure Program will help the Department of Chemistry at Texas A&M University acquire upgrade Bomen DA3-002 Spectrometer, upgrade and components for Bomen DA8-002, and IBM RS6000/550 computer. The research activity to be supported includes: (1) Potential Energy Surfaces of Non-Rigid Molecules; (2) Rovibrationally Resolved FTIR Supersonic Jet Spectroscopy of Weakly Bound Complexes Transient Species and Chemical Reactions; (3) Molecular Modeling from Infrared Spectroscopic Data. A tunable infrared spectrometer can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive molecules.